Doctoral Dissertation Research in Political Science

Although revolutions and revolutionary behavior have been the focus of attention of numerous social science disciplines, very little attention has been paid to the motivations for individuals to become involved in a revolutionary movement. This Doctoral Dissertation research addresses this topic by examining the circumstances which prompted women to participate in the Zimbabwean liberation war between 1972 - 1979. The changing composition of the rural areas of Zimbabwe brought by economic and political dimensions of colonial rule created the circumstances which led to women's participation in the war. While most analyses of peasant politics focus on class and exclude age and gender, this study will incorporate insights from political science, history, and anthropology in order to highlight the social construction of gender. This approach raises questions about how gender is intertwined with class and age; and how different configurations of these factors across geographic area and time affected peasant women's responses to the liberation struggle. This project involves a case study of a rural district in northeasten Zimbabwe and utilizes survey research methods and indepth interviews. The results of this research promise to be of interest to researchers in several disciplines who are concerned with rural-based revolutionary movements.